Structure, Energetics and Dynamics of Gulf Stream Variability

This project will investigate the structure, energetics and dynamics of Gulf Stream variability by deploying an array of current meters and inverted echo sounders for two }ears. The instrumentation is designed to obtain data to interpret the energy exchanges occuring in the Gulf Stream. The project is part of a larger study, SYNOP, which will utilize data from this and other experiments to address fundamental questions concerning the predictability of Western Boundary Current systems. This is a five year study with deployments in spring '88, redeploy in '89, and recovery in '90 in conjunction with Watts, URI (8717144).